Auditory Processing: Pulling Signals Out of Noise

This project aims to better understand the relationship between
the response of the earliest nerve cells in the ear and the way that we
hear sounds. The responses of these nerve cells can now be described
rather completely using computer models. Therefore, we can ask whether
the absolute limits of how well we can hear the differences between two
slightly different sounds is a) limited by these nerve cells, or b)
limited by the way the brain processes their responses. We will then go on
to study the responses of the second level of nerve cells in the brain.
The responses of these cells tell us how the brain takes the first step
towards processing, and ultimately understanding, complex sounds. All of
our experiments start with simple sounds in a quiet background, but then
we go on to test our ideas with sounds that are presented in a noisy
background. Hearing sounds in a noisy environment is the most difficult
problem for the hard of hearing. A better understanding of exactly how the
brain extracts information from sounds and 'makes sense' of it will aid us
in the development of better hearing aids.